Mathematical Sciences: The Classification of Hilbert ModularThreefolds

Professor Grundman will work on classifying Hilbert modular threefolds from both the arithmetic and geometric viewpoints. In particular, she intends to study minimal models for Hilbert modular threefolds with small plurigenera. This project falls into the general area of arithmetic geometry -a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.